SGER: MAGNETIC AFTEREFFECT IN RECORDING MEDIA

9980529
Della Torre

This SGER proposal is designed to train a graduate student in the technique of Preisach-Bose-Einstein modeling of magnetic aftereffect in magnetic recording media. This type of analysis determines the superparamagnetic limit of this medium. It is vital to the recording industry as the resolution limit is approached to be able to ascertain that the degradation of performance with time is within acceptable limits.
***